Inclined Piezocone Penetration Aspects - Theoretical Interpretation and Experiment Verification

***
9907951
Tumay
Rapid growth and boom in surface construction and underground infrastructure in
U.S. cities and suburbs increases the demand on geotechnical engineering.
Geotechnical engineers are facing increasing challenges to improve in-situ
testing tools for accurate site characterization of soil properties and
efficient evaluation of geomedia improvement. The piezocone penetrometer test
(PCPT) is a simple, fast, and repeatable test that can provide continuous
soundings of the subsurface. The PCPT test data can be effectively utilized for
soil stratigraphy and identification, and the evaluation of engineering soil
properties.

The use of piezocone penetrometer for site investigation is currently limited
to vertical testing. The vertical intrusion of the cone penetrometer is not
always possible due to existing obstructions and/or lack of access. Moreover,
in many cases the soil strength parameters and/or flow characteristics are
needed at an inclination plane due to the nature of soil (i.e. bedding,
inclined foundation) or the alignment of reinforcing structure (i.e. soil
nails, batter piles). The use of piezocone for inclined penetration has not yet
been thoroughly investigated.

The main objective of this research is to extend the application of piezocone
penetrometer by intrusion at different inclination angles, and to bring out the
fundamental aspects (experimental and theoretical) of the inclined penetration.
Many questions remain to be answered and interpretation methods need to be
developed before the inclined piezocone penetration is applied to practice. The
influence of the angle of inclination and soil anisotropy on the cone tip
resistance, sleeve friction, generated pore pressures and their dissipation
will be investigated. The inclined piezocone penetration will be analyzed using
the finite element methods. The outcome of this research will set the standard
towards the inclined use of the piezocone penetrometer for site investigations
in locations where it is impossible to perform vertical penetrations, and
whenever strength and consolidation parameters at a horizontal or inclined
direction are needed, as in soft ground tunneling.

This research will have a significant impact toward improving subsurface
investigation and introducing a new technique of inclined piezocone penetration
testing and its interpretation to accurately evaluate soil properties for
better design and analysis. It will also help in understanding the effect of
the soil's inherent and induced anisotropy so that better interpretation
methods can be developed.
***